Techniques and Tools for Parallel Solution of Irregular Problems

Designing practically efficient parallel algorithms with rigorously
analyzed run time guarantees seems to be difficult for a large class
of problems, commonly known as irregularly structured problems. The
solutions for such problems typically depend on run time workload
monitoring and dynamic load balancing, and the run time is often
critically dependent on the particular instance of the problem being
solved with no easy way to guarantee optimal, worst-case run times.
The goal of the proposed research is to design theoretically rigorous
and practically efficient parallel algorithms for selected irregular
applications and to develop software to demonstrate their effectiveness.
Research will also be conducted in developing distributed tree data
structures and software libraries to support these and other irregular
applications. Three important classes of applications will be studied:
grid and particle based methods in scientific computing, sequence
alignment problems in computational biology, and computing aggregates
on multidimensional data cubes in data mining. The work in scientific
computing will be focused on providing spatial data structure support
for problems such as molecular dynamics, adaptive mesh refinement
and multigrid methods. Several computationally intensive irregular
problems in sequence homology detection will be studied including
spliced sequence alignments for gene discovery, multiple sequence
alignments to discover protein motifs and full genome comparisons for
comparative genomics. The third application area is computation of
aggregates on multidimensional data. Using techniques from computational
geometry, efficient parallel algorithms for computing aggregates and
answering queries on sparse, multidimensional data sets will be developed.
The goal is to discover common underlying themes to provide a unifying
way to address seemingly disparate problem areas. For example, spatial
distribution of the data or the geometrical structure of the problem
domain is the source of irregularity for most of the problems considered.
Similarly, tree data structures are often the backbone of parallel
algorithms for many irregularly structured problems.

The broader impacts of the proposed research include fundamental
contributions to solving irregularly structured problems, a major
theme of research in parallel processing. Student participation in
research is pursued using multiple strategies - graduate students
through direct funding under the project, undergraduate students
via senior design projects, female students through Iowa State's Women
in Science and Engineering program, and minority students through
collaboration with a minority serving institution.